Developmental Biochemistry of Plant Seed Embryogenesis and Germination

The proposed research of this proposal assumes that a major factor in the regulation of gene expression is the population and concentration of trans acting protein factors, and that developmental regulation is largely a function of the regulation of trans factor gene expression and/or trans factor covalent modification. For this reason Dr. Dure wishes to study the regulation of expression of a developmental trans factor gene from a higher plant, cotton. Specifically he wishes to: 1) purify a trans factor for a developmentally regulated set of genes, 2) via the trans factor cDNA, isolate and sequence the trans factor gene, 3) examine the structure of the trans factor protein and identify its DNA binding domain and gene activation domain, 4) describe the temporal period of expression of the trans factor gene in ontogeny by measuring mRNA and protein levels of the trans factor and comparing them to the temporal period of expression of the genes it activates, 5) should these temporal periods not coincide, examine the possible regulation of trans factor activity by covalent modification. Ultimately Dr. Dure wishes to express the storage protein gene(s)in nuclei isolated from non-expressing tissue (leaves) by interaction with the trans factor and other nuclear factors. %%% Dr. Dure is interested in the factors which regulate gene expression of cotton seed storage proteins. He is using this as a model system for studying the tissue and time specific gene expression during development.